US-France Cooperative Research: Structural and Chemical Investigations of Chalcogenide-Type Intercalation Compounds

This award will support collaborative research in solid state chemistry between Dr. William Glaunsinger, Arizona State University and Dr. Pierre Colombet, Institute for Material Physics and Chemistry, Nantes, France. The objective of the project is the synthesis and characterization of sulfide intercalation compounds. The primary thrust of modern materials research is to synthesis new materials and structural arrangements with desirable chemical and physical properties based on a knowledge of key structure-property relationships. One of the best examples of this theme has been research on intercalation compounds, which are formed by the insertion of guest species (intercalants) into a host matrix. By appropriate choice of guest and hosts, intercalation compounds can be prepared with controlled chemical, structural, thermal, motional and electronic properties. In the proposed project, the investigators plan to elucidate the structures and chemical reactivity of a carefully selected set of prototypical intercalation compounds using four different classes of chalcogenide hosts. These materials will provide a unique solid-state framework for detailed study of a diversity of intriguing structuring, physical and chemical phenomena in reduced dimensionality. Crystal structures will be determined using neutron and X-ray diffraction. This project will benefit from the complementary expertise of the two investigators. Dr. Colombet and his group are internationally recognized researchers in layered compound chemistry and Dr. Glaunsinger has significant experience in the area of intercalation compounds.